MRI: Acquisition of a Supercomputing Cluster for Computational and Data-Intensive Applications in Science and Engineering

Proposal #: CNS 07-22625
PI(s): Apon, Amy W.
Bellaiche, Laurent; Fu, Huaxiang; Pulay, Peter; Thompson. Craig W.
Institution: University of Arkansas
Fayettesville, AR 72701-1201
Title: MRI/Acq.: Supercomputer Cluster for Computational & Data-Intensive Applications in Science & Engineering

Project Proposed:
This project, acquiring a cluster for computational and data intensive applications, aims to enable projects in computer science, physics and chemistry, including
. Grid Capacity Planning, focusing on grid workload and systems characterization and building simulation models or performance analysis, capacity planning, evaluation of scheduling, and data placement;
. Approach to Design Low Loss, Tunable Ferroelectric Material, resolving dialectric loss at finite frequency and temperature for microscopic understanding of loss mechanism(s);
. Discovering New Physics of Nanostructured Materials to understand and discover new physics in novel types of nanomaterials;
. Developing Methods for Parallel Computing to Improve Fourier Transform Coulomb (FTC) and Efficient Implementation of Triple Substitutions in Coupled Cluster Theory;
. Data Indexing and Middleware, including RFID middleware, Synthetic data generation service, Subsetting the workflow grid, VMlab, and Technology transition;
. Computational Design of Self-assembly Systems for Nanostructured Formation;
. High Performance Computing for Spray Cooling Modeling and Nanofluids; and
. Atomistic Calculations of Interface Behavior in Nanostructured Materials.
The computing cluster, an integrated supercomputing platform for distributed memory parallel applications, also enables collaborative courses in high-performance and grid computing.
Broader Impact: The infrastructure contributes to outreach activities such as seminars and academic courses, attracting new users and building computational expertise in the region, as well as in the training of students.